Combinatorial Models for Manifolds and Vector Bundles

9803615
Anderson
This project centers on two combinatorial models for manifolds and
vector bundles: Gelfand and MacPherson's theory of combinatorial differential
manifolds and matroid bundles and Mnev and Mani's theory of locally polytopal
manifolds. The primary focus is on the bundle theory and classifying spaces
within each model. In both of these models, a bundle-theoretic perspective
leads to deep and unexpected new relations between topology and combinatorics:
the primary objective of this research is to expand on these relations. The
project's goals include both combinatorial applications in topology (for
instance, combinatorial formulas for topological invariants) and topological
results in combinatorics (particularly on the topology of posets of oriented
matroids and polytopes). The classifying spaces for Gelfand and MacPherson's
theory derive from certain partially ordered sets of oriented matroids, and
have close ties to the real Grassmannian. Among the objectives of this
research are a closer knowledge of the topology of the combinatorial
Grassmannian and applications of this knowledge both to real vector bundles
and to various combinatorial problems. Mnev and Mani's theory also appears
to give rise to a classifying space of interest in both topology and
combinatorics, relating PL manifolds and convex polytopes. The author will
also study a new type of ``non-Euclidean'' pathology in oriented matroids and
its implications for combinatorial differential manifolds.
Much of the power of these combinatorial models for topology derives
from the elegance with which topological concepts translate into combinatorial
analogs. One can, for instance, derive combinatorial formulas for topological
invariants by simply translating each element of a topological formula into
its combinatorial equivalent. The translation from combinatorics to topology
has proven equally useful: these models have provided a new framework in which
to view various combinatorial topics. Both models have revealed a
vector-bundle perspective on various combinatorial problems that originally
appeared to have no connection to real vector bundles, leading to unexpected
topological proofs. This project will build on recent results in this area
whose depth lies in uniting the combinatorial side of mathematics, rooted in
counting things, to the topological side, rooted in plasticity and spatial
continuity.
***